Modeling the Atlantic Ocean Thermohaline Circulation and its Sensitivity to Marginal-Sea Overflows

9616951 Yang In this project, the PIs will address the poor state of model representation of overflow processes from marginal seas into the open ocean by implementing and improving a simple marginal-sea model into the GFDL MOM. Specifically, they plan to include a contribution from wind-driven circulation to open ocean-marginal sea exchange, and to allow a finite storage capacity of the marginal sea. Their previous work demonstrated that they can couple a marginal sea model with a GCM.